2003 Nuclear Physics Gordon Conference; July 20-25, 2003; Colby College, Waterville, MN

The principal objective of the Gordon Research Conference on Nuclear
Physics is to provide the international community of nuclear
scientists with a unique forum in which the most recent developments
and results in this field can be presented, extensively discussed
and criticized. A prime objective of this conference is to ensure
that discussions are conducted in a manner that will invite vigorous
and open interactionsbetween scientists and provke new, and
sometimes speculative, ideas for future research Generous time is
allocated for such discussions and the site location and conference
activities successfully promote their occurrence.

The proposed goals require the participation of a signifcant number
of the leaders in this field. These include both internationall
recognized senior scientists from around the world and the young and
rising stars. The participation of younger scientists is essential
to address the future manpowwer needs of this rapidly changing
field. Therefore, bright and promising postdoctoral researchers and
graduate students have been specially selected for participation in
this conference and encouraged to present their ideas. Their
participation in this conference provides them with unique and
extensive access to the leaders in their field, exposes them to new
research opportunities and techniques and helps prepare them for the
leadership roles they will assume in the future.

The conference will examine various topics of current interest in
nuclear physics, including the role of quantum chromodynamics (QCD)
in heavy ion, hadronic electrono/muon, and neutrino physics.